Studies on Affine Scaling Method

Affine scaling methods form an important class of point algorithms for solving a linear programming problem, and there have been some major developments in the convergence and convergence rate theory of these methods. In particular, when the problem may be degenerate, if the step size is less than equal to two thirds of the distance to the boundary, the primal converges to the interior of the optimal face, while the dual to the analytic center of the optimal dual face. Also, by a step selection strategy, these methods have been shown to converge superlinearly. More efficient variants have also been developed. Under this project, four different aspects of these methods are being studied: 1) study of their convergence properties, convergence rates and complexity; 2) study of stable implementations to achieve these higher rates of convergence in computer implementations; 3) study of their connection to Kalman filter and their application to solving stochastic linear programming problems; and, 4) study of their efficient implementations in vector/parallel/distributed computing environments.